1991 Atmospheric Chemistry Gordon Research Conference

1991 Atmospheric Chemistry Gordon Research Conference Program topics for the 1991 Gordon Conference on Atmospheric Chemistry include global distributions and trends of atmospheric species, surface exchange fluxes of trace species, gas phase photochemistry, heterogeneous and condensed phase processes, theoretical modeling and analysis, and policy and perspective. The program represents the best of national and international efforts in atmospheric chemistry and has been designed to so that participants will gain a deep insight into both the state-of-the- art and the outstanding challenges of atmospheric chemistry in 1991. Informal meetings of the National Research Council's Atmospheric Chemistry Committee and the Coordinating Committee and Convenors of the International Global Atmospheric Chemistry Program will also be held. The Conference will be held in New Hampton, New Hampshire, 17 - 21 June, 1991.